Letter braiding invariants of words in fundamental groups and arithmetic

This project will study algebraic objects with varied applications, such as ones representing paths along some physical surface or solutions to polynomial equations. The approach proceeds by analyzing strings of letters that record the essential complexity of the object, through the ways in which those letters interleave. Some of the deepest ideas of mathematics, collectively known as Galois theory, give concrete recipes for extracting meaningful strings from topological or arithmetic data, well-defined up to some rewriting rules. Unfortunately, analysis of rewriting strings is generally impractical, as the famously unsolvable Word Problem shows. The project will focus on a specific effective technique called `Letter Braiding', introduced by the PI in 2023, to develop computational tools that can be implemented efficiently on a computer or artificial intelligence engines while simultaneously offering insight into the topological features reflected in the calculations.

The project will work on four distinct fronts. First, is the development of power series expansions for words in various classes of groups, such as surface groups. Such expansions give a robust method for comparing group elements presented as products of generators, which is difficult in general. Second, the project will explore a relative theory, adapted for pairs of groups, with the goal of understanding torsion phenomena in Torelli subgroups of mapping class groups and automorphisms of free groups. The third will apply letter braiding in the setting of p-complete groups, such as Galois groups of number rings, and is expected to shed new light on interactions between prime numbers via their analogy to knots in three-manifolds. Lastly, the project will branch out from groups and construct an effective toolkit for studying presented associative algebras using Letter Braiding of generators.